Mathematical Sciences: Geometry and Analysis on Manifolds

The research entails applications of analytic and geometric techniques to the general area of symplectic geometry in the semi-classical limit. Techniques of spectral asymptotic analysis relative to the geometry of singular spaces will be investigated in this context. Further investigations into the analysis of Monge-Ampere type equations relative to the structures of Cauchy- Riemann manifolds, are also proposed.